NNA Track 1: Collaborative Research: A Purpose-Driven Merger of Western Science and Indigenous Knowledge of Water Quality in Alaskan Communities

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, enhances efforts in formal and informal education, and integrates the co-production of knowledge where appropriate. This award fulfills part of that aim by addressing interactions among social systems, natural environment, and built environment in the following NNA focus areas: Arctic Residents, Forecasting, and Resilient Infrastructure.

The well-being of Alaskan Indigenous communities depends on access to safe drinking water. However, water pollution has remained a reality for many of these communities due to naturally occurring and anthropogenic pollutants. As the climate warms, environmental changes will likely exacerbate water contamination problems by releasing entombed microorganisms, ancient organic carbon, nutrients, and metals through thawing of permafrost and melting of glaciers. While Alaskan communities are highly vulnerable to such changes, they also hold valuable Indigenous Knowledge about their water resources. This project aims to merge Western scientific knowledge with Indigenous Knowledge of water to better understand these changes in water quality over time. Additionally, this project will lead to the development of a framework for true convergence of Indigenous Knowledge and Western science that can be applied to similar environmental and cultural changes ongoing in other communities.

The project will collect and aggregate Western scientific data and Indigenous Knowledge of water quality in three environmental systems that are unique to the Arctic (glaciers, permafrost, and a glacier-impacted river system). Specific project objectives are to (i) assess the physical, chemical, and microbial quality of water stored frozen in glaciers and permafrost, (ii) analyze the interaction between background water chemistry (e.g., dissolved organic carbon, metals, nutrients) and microbial ecology at the present time, (iii) delineate Indigenous water quality knowledge using ethnographic approaches, including photo-voice and semi-structured interviews, and (iv) communicate with Alaskan community members through advisory boards and open community meetings at Selawik and Anchorage. A true convergence between Western scientific data and Indigenous Knowledge will be forged by a purpose-driven approach (i.e., community well-being) to shared learning. The broader impacts of this project include (i) engagement with underrepresented communities in STEM, (ii) inclusion and training of a diverse pool of students in project goals, and (iii) the novel “celebration of water” event in which photo-voice activities and stories told by Alaskan community members will broadly disseminate project knowledge.